Professional Development Supports for Teaching Bioinformatics through Mobile Learnng

Bioinformatics is an emerging area of research that develops new knowledge through computational analysis of vast biological and biomedical data. This project will investigate the professional development supports needed for teaching bioinformatics at the high school level. Building from a robust literature in professional development design research, project team will work with biology and mathematics teachers to co-design instructional modules to engage students with core bioinformatics concepts and computational literacies, by focusing on local community health issues supported through mobile learning activities. The overarching goal of the project is to help create an engage population of informatics-informed students who are capable of critically analyzing information and able to solve local problems related to their health and well-being. The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of instructional innovations. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

The project team will use a design-based implementation research approach to identify the curricular and instructional supports needed to achieve the teaching and learning goals through iterative project revisions, employing mixed methods to evaluate teacher and student learning processes and outcomes. Teachers from local high needs schools will participate in a three-week summer workshop, where they will learn about state-of-the-art bioinformatics content, project-based pedagogies that promote computational literacy, and strategies integrate mobile technologies into instruction. They will implement the instructional units during the year, and the summer workshop will be revised and delivered to an expanded cohort of teachers the following summer. The data collection and analysis conducted on teachers' enactment of these modules will reveal the professional development and implementation areas needed to support particular populations, specifically underrepresented groups in STEM, to engage with bioinformatics learning and take authentic action on local community issues.